CREST: Center of Emerging Technologies for Advanced Information Processing and High-Confidence Systems

HRD 0317692

CREST Center for Emerging Technologies for Advanced Information Processing and High-Confidence Systems

Florida International University

PI: Yi Deng

Florida International University (FIU) will establish the CREST Center for Emerging Technologies for Advanced Information Processing and High-Confidence Systems. This multidisciplinary research and educational center will serve as a resource center for the education of underrepresented minority students as well as a driving force to increase diversity in graduate education, especially at the Ph.D. level in computer science and engineering.

In addition to the educational component, the Center will pursue four major research subprojects. (1) High-Confidence Reactive Software Systems will build high confidence reactive software systems by developing efficient and scalable methods for modeling, specifying, analyzing, and implementing such systems.
(2) Multidimensional-Multimodal Data Modeling and Query Research focuses on the intelligent use of databases for data mining, modeling, and analysis through effective queries. The querying support process will yield efficient access over multidimensional multimedia data sets and effectively address the issues of interpretation and visualization of such complex data sets. (3) Assistive Technology Research is based on the design and development of real-time assistive systems that focus on Visual Impairments and Blindness, and Motor Disability, which are achieved through integration of highly dependable and sophisticated real-time software and databases to hardware designs. (4) Advanced Information Processing with Neuroscience Applications will focus on signal and imaging techniques that have significant real-world applications, while the Neuroscience research aims to meet the impending needs for new developments in bio-signal processing and neurorehabilitation as the functional mapping of the brain and the causality of key brain dysfunctions are elicited.